Establishment of REU Site in Electrical & Computer Engineering

A program for providing ten talented undergraduate students the opportunity to participate in research projects in various areas of electrical and computer engineering. The program involves coordinating the efforts of seven schools, namely, Washington State University (including the WSU-Tri-Cities), University of Idaho, Montana State University, Gonzaga University, Portland State University, Seattle University and Walla Walla College, in the recruiting and selecting of these students. At most, five students will be chosen for Washington State University (including WSU-Tri-Cities). The students will participate in on-going research projects in the department, and will generally be given enough latitude to partially determine the direction of their research. Research projects include Schottky diode modelling, modelling and parameter extraction of field effect and bipolar transistors, numerical analysis of shoaling waves, coded quantization for signal processing and VLSI design of an encoder. The students will have access to modern laboratories with excellent equipment support, and up-to-date computing facilities.